FY 2005 Support of the Federal Laboratory Consortium for Technology Transfer

The National Science Foundation is providing its FY2005 annual financial contribution to the Federal Laboratory Consortium (FLC).